Molecular Mechanisms of A2a Adenosine Receptor Desensitization

Adenosine is a naturally-occurring substance which serves as a neurotransmitter, thereby helping cells to communicate. Target cells which are responsive to adenosine bear specific receptors for adenosine. These receptors transmit the adenosine signal from outside of the cell to the interior, and the function of the target cell can be regulated. The preliminary data for this project demonstrates that the adenosine receptor subtype 2a A2a receptor is subject to regulation by adenosine itself and potentially by other neurotransmitters. The adenosine receptor protein has structural features which are potential targets for regulatory mechanisms, such as the addition of phosphate groups. The proposed work will use molecular biology and pharmacology methods in a laboratory cell culture system to analyze the structural features of the A2a adenosine receptor which confer regulation of the receptor protein.